Research Initiation Award: Molecular Dissection and Manipulation of Gene Networks and Soil Microbiome to Improve Low Nitrogen Tolerance in Quinoa

The Historically Black Colleges and Universities Undergraduate Program (HBCU-UP) through Research Initiation Awards (RIA) provide support for junior and mid-career faculty at Historically Black Colleges and Universities who are building new research programs or redirecting and rebuilding existing research programs. It is expected that the award will help to further the faculty member's research capability and effectiveness and improve research and teaching at the home institution. This award will advance understanding of nitrogen fertilizer as an essential component for crop production. While plants typically use only a fraction of the nitrogen applied to fields, with the remainder lost to the environment, increasing production costs and contributing to water and air pollution. Quinoa is a highly nutritious grain crop with exceptional nutritional value and agricultural potential. This project will identify quinoa varieties that maintain productivity under reduced nitrogen fertilizer conditions and discover beneficial soil microorganisms that naturally support plant growth when nitrogen availability is limited. The research will increase understanding of how plants and beneficial microbes work together to use nitrogen more efficiently, contributing to more sustainable agricultural practices. The project will also provide hands-on training opportunities for students and researchers in molecular biology, bioinformatics and data analysis, helping to develop a skilled STEM workforce while strengthening research capacity at Alabama State University.

This project will investigate the biological mechanisms underlying low-nitrogen tolerance in quinoa, a genetically diverse pseudocereal crop with substantial nutritional and agricultural potential. Diverse quinoa genotypes will be evaluated under contrasting nitrogen conditions to determine which genotypes exhibit superior tolerance to low nitrogen conditions. Selected tolerant and susceptible genotypes will be characterized at the physiological, transcriptomic, and metabolomic levels to identify genes, gene networks, and metabolic pathways associated with nitrogen stress tolerance. Candidate genes identified through this multi-level analysis will be functionally validated in a model plant system using genetic transformation and complementation approaches. In parallel, microbial communities associated with improved nitrogen use efficiency will be evaluated for their potential application in sustainable crop production. Integration of transcriptomic, metabolomic, and microbiome datasets will provide a comprehensive understanding of the biological processes contributing to efficient nitrogen utilization. The resulting knowledge will advance understanding of plant nutrient-use mechanisms, identify targets for crop improvement, and support the development of sustainable agricultural strategies that maintain crop productivity while reducing fertilizer inputs.